Re-evaluation of the late Paleozoic ice age in eastern Australia

Through the proposed two-year project, the PIs will provide the first modern evaluation of the
late Paleozoic Gondwanan glaciation in eastern Australia. Currently, the data and observations
on which the interpretations of the glacial record in eastern Australia are based predate the
scientific advances in the field of glacial geology of the past thirty years and, as such, have made
it difficult to incorporate information from the region into global reviews of the issue. The
rationale for the proposed project is that until new sedimentological and geochemical data are
gathered and resolved into a robust stratigraphic framework, understanding of the late Paleozoic
ice age in eastern Australia, and how it fits into the global picture, cannot be advanced. The
proposed project will build upon the results of previous studies carried out by the PIs in
Queensland and New South Wales, Australia, and will benefit from recently improved age
constraints for the Carboniferous system of New South Wales. This investigation will include:
(1) collection of sedimentological data from key areas in New South Wales, Australia; (2)
generation of stable isotopic proxy records of climate change derived from climate-sensitive
calcareous components; and (3) correlation of interpreted glacial periods with other areas in
Australia and other Gondwanan continents. The applicants are uniquely qualified to carry out
this research, having the necessary sedimentological and geochemical skills and experience, a
combined twenty years research experience in the field area, and a considerable inventory of
relevant, preliminary data.

Intellectual Merit
The proposed research will contribute to a developing global re-evaluation
of the late Paleozoic iaicehouselo period, and as such will have relevance and significance to a
broad range of geoscientists. It is anticipated that the results from this work will, among other
outcomes, contribute to increasingly sophisticated numerical models of past climates which are
now being used iteratively to provide estimates of rates and magnitudes of climate change
through geologic time.

Broader Impacts
Because participation in scientific research plays a strong, positive role in
guiding student perceptions of career opportunities in science, both undergraduate and graduate
students will be included in research activities. Students will be involved in data gathering and
interpretation, and will be encouraged to publish outcomes and participate in professional
meetings. Students from groups traditionally under-represented in the geosciences will be
targeted for participation. The PIs will work with the University of Nebraska-Lincoln Office of
Trio Programs to identify students from these groups. Results of the proposed research will be
incorporated into education activities, presented at professional meetings, and published in peer-
reviewed journals. The benefits to society, though indirect, are certainly tangible in the
contribution made to input parameters for numerical models of climate change.